Conference: Collaborative Workshop in Algebraic Geometry

This award supports participants to attend a collaborative algebraic geometry research workshop at the Institute for Advanced Study (IAS) during the week of June 24-28, 2024. The goals of the workshop are to facilitate significant research in algebraic geometry and to strengthen the community of individuals in the field from underrepresented backgrounds. We will place a particular focus on forming connections across different career stages. Participants will join project groups composed of a leader and co-leader together with two to three junior participants and will spend the workshop engaged in focused and substantive research.

The projects to be initiated during this workshop represent a wide range of subfields of algebraic geometry (e.g. intersection theory, toric geometry and arithmetic geometry), as well as connections to other fields of math (e.g. representation theory). Specifically, topics include: abelian covers of varieties, del Pezzo surfaces over finite fields, positivity of toric vector bundles, Chow rings of Hurwitz spaces with marked ramification, Ceresa cycles of low genus curves, and the geometry of Springer fibers and Hessenberg varieties. More information is available at https://sites.google.com/view/wiag2024/.